Mathematical Sciences: Applications of Category Theory in the Semantics of Programming Languages

This project is concerned with the application of category theory to the semantics of programming languages. The principal investigator will examine algebraic semantics in the category PER, order-enriched sketches, enriched semantics, initial algebras and some computer related research. The research in this project involves the application of category theory to problems in theoretical computer science. Traditionally, category theory has dealt with the foundations of algebra; namely, it has focused on sets with algebraic structure, mappings between sets that preserve that structure, and even more abstract functors that relate the collections of algebraic structures and their mappings. In recent years, this research subject has enjoyed a rebirth in theoretical computer science. In this project, the techniques of category theory will be applied to study the semantics of programming languages, data types, and categorical programming.